Travel Support for Annual Computational Neuroscience Meetings, CNS '99, '00, '01; to be held July 1, 1999 -June 30, 2001

This award is for the partial travel support for students and young scientists to attend the annual conference in Computational Neuroscience.The award is solely for travel support for especially needy participants. The CNS conference, now approaching its 10th year, brings together a group of internationally recognized computational neuroscientists. Along with the invited talks, the general sessions provide a comprehensive treatment of topics in the field. This meeting provides an environment that fosters communication among theoreticians, modelers, and experimental neurobiologists. The meeting and its proceedings are published in the Journal of Computational Neurobiology to ensure that accepted works can have a broad impact.